In-situ Growth of Indium Arsenide/Antimonide Long Wavelength Photodiodes

The new technology of strained superlattice (SSL) of InAsSb and in- situ formation of photodiode on silicon (Si) has the potential of fabricating producible long-wavelength infrared (L-WIR) photodiodes for diverse and military applications. An investigation on the molecular beam epitaxial (MBE) growth of the SSL on Si has been made in a phase I SBIR program, aimed at fabricating producible LWIR arrays. This was accomplished in phase I: (1) all required MBE modifications compatible to the MBE system have been designed and some have been reduced to practice; (2) the MBE processes for growing a lattice-matching buffer, SSL and photojunction have been delineated; (3) the feasibility of growing high quality buffer and InAsSb epitaxial layers on Si has been demonstrated by numerous MBE growth runs; and (4) a detailed plan for phase II has been established. The MBE growth runs performed have consistently produced good epitaxial growth, manifested by well-ordered reflective high energy electron diffraction (RHEED) patterns, high growth stability, mirror-like surface morphology and high carrier mobility. These runs have reduced the high risk elements and increase the probability of success of phase II. The first goal in phase II is to optimize the growth of the buffer and InAsSb SSL to establish a cutoff wavelength of 12 microns. Second goal is to develop the photodiode detector using MBE. A special buffer on Si for lattice matching an defect blocking will be developed then the growth of SSL on the buffer, followed by the in-situ growth of the photodiodes will be established. The low- defect SSL will provide high detector performance, producibility and uniformity, while the sequential multilayer growth will produce a straightforward in-situ photodiode formation process.